Scholarships, Mentoring, and Academic Enhancement Training for Science and Mathematics Undergraduate Students

Engineering - 99

This project is awarding scholarships to thirty students annually within the fields of science and mathematics. They are recruiting high school students who have demonstrated great potential for success and retaining them through the implementation of various student support and mentoring programs. The project is enhancing the students' educational experiences through workshops, seminars, K-12 and community outreach opportunities. Each scholar is participating in computer technology training through the LSU Student Application and Resource Training (START) Program.

Each scholar is creating a portfolio of academic work that is annually updated. Progress is being measured based on student academic performance, progress in computer technology, and their participation and attendance in the project academic enhancement activities. Graduation interviews are providing additional insight to project improvement.